Optimal Parallel Computation

It is not always clear how to use parallel machines in an optimal way. Intuitively, parallelism may help because we may be able to perform several components of the computation simultaneously. However, such components usually are subject to precedence relations that do not allow some components to be started before some other components have been completed. The reason is that each component may need results produced by some other components in order to start. A major open problem is how to map programs to parallel architectures so that the total time (computation plus communication) is minimized (up to a constant factor), and the number of processors used to achieve this optimal time is minimized (up to a constant factor). The PI will investigate this problem. Another important problem that will be investigated is optimizing the time and number of processors if only the problem, rather than a program that solves it, is given. To the extent possible, a general method, that works for every architecture, will be designed. However, some important aspects of parallel computation seem to require a closer look at the particular architectures.